WORKSHOP: Reinventing The Use of Materials; July 2001, Princeton, NJ

The workshop will be convened to address the issues raised in the recent report from the National Research Council, Grand Challenges in the Environmental Sciences, concerning the use of materials. The objective of the workshop is to recommend a research agenda needed to reinvent the use of materials. Topics will include material budgets and cycles, their resource and environmental implications, the next generation of products and materials, optimization of material cycles, and scenarios for the future use of materials. Participants will include research scientists in academia, industry, and relevant agencies.

The expected outcomes will include a 5-year plan for the implementation of an initial detailed research program, a strategy for developing the necessary research integration across the disciplines, a program for training individuals in the topical area of materials use, and a strategy for coordinating the program results with those of the other grand challenge initiatives.